Creation of Videodiscs to Enhance Instruction in Mathematics

An erasable laser videodisc recorder is being utilized to put still images and full motion video with soundtracks on videodiscs. The high quality visuals that are being developed provide a powerful dimension of speed and realism to mathematics instruction, transforming classrooms from information-poor to information-rich environments. The first discs produced provide easy-to-use reference and training materials to support computer laboratory activities and provide support material for the courses for prospective elementary school teachers. The equipment will also be used to improve the training of secondary school teaching candidates and for inservice work for teachers in area schools.